Highly Parallel Algorithms for Reacting Groundwater Flows

The development of highly parallel computational methods for the solution of three-dimensional transient partial differential equations representing fluid flow in porous media and the transport of reactive solutes is proposed. These methods will focus on large scale three dimensional problems and will have applications in enhanced oil recovery and restoration of contaminated groundwater systems. The methods will be implemented, and performance and scaling issues assessed, using the Connection Machine as the target architecture.